Intermediate Steps in Developing a Framework for Power System Operation Closer to Security Limits (SGER)

This is a SGER project on a controversial subject: transient stability methodology for electric power systems. The investigators are examining new indices and measures for transient stability including measures of security margin, critical parameters, critical contingencies, vulnerability, and indices of stress. The project includes methodologies which are capable of direct calculation of these parameters. Additional project foci include expert system sorting of stability indices and on-line methodologies. The project is controversial in that it is at odds with traditional methods and their use for transient stability assessment.